U.S.-Azores (Portugal) Collaborative Study of CO, O3, and Black Carbon at PICO-NARE

0110397
Honrath

This two-year award for US-Portugal collaboration on assessing the impacts of continental emissions from North America and Europe upon tropospheric composition in the North Atlantic region involves Richard Honrath of Michigan Technological University and Paulo Fialho at the University of the Azores, Portugal. Measurements of ozone, carbon monoxide, black carbon, and meteorological parameters will be made at the Pico International Atmospheric Chemistry Observatory for a two-year period to test the hypothesis that significant formation of ozone occurs in plumes from North America advected toward the central North Atlantic.

The US researchers bring to this collaboration expertise in atmospheric chemistry measurements at remote field sites in the North Atlantic region and they will provide the measurement station infrastructure. This is complemented by Portuguese expertise in atmospheric and land conditions in the Azores region; the Portuguese will provide black carbon measurements. The results of this research are expected to contribute to an understanding of anthropogenic impacts on the earth's radiation budget, and aid the development of improved estimates of current and future impacts on climate.